Science Park Indicators Workshop to be held in North Carolina, November, 2002

This proposal will fund a one-day workshop that will present NSF-funded research on science parks and gather experts in the area in order to stimulate an assessment of recent findings, as well as likely directions of future research. The workshop will also explore policy needs for national-level indicators on science parks.